Mathematical Sciences: Some Relations Between Partial Differential Equations and Geometry

The principal investigator will analyze various problems reflecting the interaction between partial differential equations and the geometry and topology of manifolds. Specifically, he will extend his existing work on L^2-cohomology and derive topological invariants for L^p-cohomology spaces. In addition, the problem of small eigenvalues of negatively curved manifolds will be investigated. L^p-cohomology has links with number theory, algebraic geometry, group representations, and combinatorial topology. The principal investigator will use his knowledge of the L^2 theory to solve two difficult but natural problems which arise from considering the more general L^p case.